Mathematical Sciences: Stable Qualitatively Correct Interpolants for Highly Accurate Discrete Data

Pruess The investigator develops and analyzes stable methods for generating approximants of high global accuracy to functions defined essentially by highly accurate interpolatory data. Several numerical algorithms for estimating the solution of an ordinary differential equation can produce highly accurate approximations at a finite set of points. It is often desirable to construct a closed form approximation based on this data; however, the obvious piecewise polynomial interpolants frequently do not work, especially for highly nonuniform meshes. An interpolant based on local collocation seems to be stable but further analysis and algorithms are needed. A related problem is that of finding interpolants given accurate discrete data for Sturm-Liouville eigenfunctions: it is desirable to retain the accuracy with an interpolant having the correct oscillation properties. The problems to be studied are a natural outgrowth of prior work that resulted in a widely used software package. Advances in both theory and computer implementation are sought. Applications are to representation of curves arising in computer graphics, and to producing graphical representations for solutions to problems arising in quantum chemistry and physics.